SBIR Phase II: Characterization of the Metabolic Competency of Centrifugal Bioreactors

This Small Business Innovation Research Phase II project is to develop a pilot-scale Centrifugal Bioreactor (CBR) for the continuous cultivation of hybridoma cells.
The commercial application of this project will be in the biopharmaceutical industry for cell culture production of therapeutic agents. It is expected that the technology will reduce the scale and capital costs of commercial animal cell culture equipment and improve the quality and consistency of the secreted protein product.